SGER: Gravity and Bathymetry Data Acquisition on Arctic Science - 93: A Nuclear Powered Submarine Cruise in the Western Arctic Ocean Basin

WPC 2 B V Z . Courier 10cpi (AC) Courier 10cpi Helv 12pt (AC) (AC) Helv 12pt (AC) #| x k x 6 X @ 8 ; X @ ldtl lhd@T@\\,\d\d\4dd,,\, dddd<X4dX|TXTT\T HP LaserJet Series II HPLASEII.PRS x 6 X @ 8 ; , t 0 OpX @ 2 . # ( urier 10cpi | x Helv 10pt Bold (AC) Helv 10pt (AC) @ 8 ; X @ 2 { ` 3 06-25-93 02:59p Scott Borg Scott Borg ; " ^4@@ l 4DDd 8@8dllllllllll<< h t 4d l | |t ||xHdHll4lthtl4tp((h( ptttDd8p` `d`lll 2 X $ P ? x x x , k x 6 X @ 8 ; X @ 1 p C 4 , 0iX p 2 P X P v v ^_ Õ EU ^ & t + & G * & O * + @@ F F 4 & G F V F 0 F ^ e > . | + " ^,44 X " ^4@@ l 4DDd 8@8dllllllllll<< h t 4d l | |t ||xHdHll4lthtl4tp((h( ptttDd8p` `d`lll 2 9317712 Langseth This award is for support of a gravity and bathymetric survey of the western Arctic Ocean basin that will be conducted from a US Navy nuclear powered submarine. The Arctic Ocean basin is the least explored of all the world's ocean basins. Geophysical work has been limited to a few aerogeophysical surveys, occasional icebreaker cruises, and to work from drifting ice islands. This project represents a unique opportunity to investigate the structure of the Canada and Makarov Basins, the Chukchi Plateau, and the Alpha, Mendeleyev, and Lomono sov Ridges. The objectives of this work are to precisely locate the boundary between the Eurasian and North American plates, to constrain the tectonic models for rifted margin development of the Lomonosov Ridge, and to constrain models for the development of the Alpha Mendeleyev Ridge between the Canada and Makarov Basins. *** # x \ P C 0iX P#